Workshop: Focusing on Wireless as Viable One Gigabit Broadband Strategy, Washington, DC Metro Area

This workshop seeks to develop a vision of next-generation wireless broadband, specifically looking at the research topics that need to be addressed to get wireless functionality in the range of one gigabit per second by the end of this decade. The workshop will also explore how federal, state, and local policies impact or encourage that development.

This workshop will advance knowledge and understanding of the challenges in using wireless for one gigabit per second networking infrastructure. Wireless will need to play a pivotal role as part of a next-generation broadband strategy, and hence the capabilities and limits of high-speed wireless networking technology and relationships to policy need to be explored.

The workshop will provide a strategic overarching vision, a roadmap for wireless technology development, and a focused target to stimulate wireless networking research.